Mathematical Sciences: Probability and Statistics

The research will deal with the general areas of reconstruction, estimation and reliability. Reconstruction of an integrable function via a few of its projections leads to a class of solutions. From the point of view of the applications, it is important to know the size of this solution set. The principal investigator will study the extreme points of this set. For the estimation problems, a notion of compact admissibility is introduced. A decision is compactly admissible if it becomes admissible when the sample space is replaced by a compact subset. Dr. Kemperman will study the compact admissibility and other properties of estimators in exponential families. Reliability properties of a distribution function will be explored through the convex hull of all moment points.